Consortium to Conduct a State-by-State NAEP Assessment

The purpose of this proposal is to establish a consortium to carry out, on an interim basis for the 1990 assessment, the kind of consensus planning process that will be necessary for state- by-state administration of the National Assessment of Educational Process (NAEP). The purpose of this consortium is to establish a steering committee consisting of a representative of each consortium member which will develop and direct a process leading to a series of recommendations to the Center for Education Statistics concerning the conduct of a state-level assessment in 1990. On May 4, a planning meeting convened by the Council of Chief State School Officers determined on a preliminary basis that it is feasible to conduct a state-by-state assessment on a limited scale in 1990. The group recommended attempting to conduct a consensus planning process to prepare for state-by-state assessment and to identify operational procedures for such an assessment. The group concluded that limiting the assessment to mathematics at the high school (17-year olds) level would be desirable. The consortium will: 1) Develop and propose a policy statement on the purposes of state-level assessment. 2) Recommend the scope of the 1990 assessment that should be done on a state-by- state basis--confirm the subject (mathematics) and grade levels to be assessed and the extent of participation to be sought. 3) Determine commonalities of opinion and important sources of differences within and among major educational constituencies concerning the subject to be assessed. 4) Recommend the knowledge and skills that should be assessed in the subject. 5) Recommend additional information that should be collected in conjunction with achievement data on a state-by-state basis. 6) Recommend the format that should be used to report state-level assessment and background data.